CGI Dissemination For North Carolina

9450518 Bright This is a five-year project to prepare five regional service teams in North Carolina to provide teacher enhancement in Cognitively Guided Instruction principles and techniques in K-3 mathematics in schools throughout the state. The five teams, a total of 30 teachers and 10 mathematics educators, will receive 52 days of training in CGI, leadership skills. In years 3-5, they will provide teacher enhancement programs, averaging 11 days, to about 130 teachers annually and awareness programs to an equal amount in requesting districts. It is expected that the teams will continue this enhancement at the request of additional schools after the NSF support ends. The enhancement program used with teachers will be developed by the project leaders in conjunction with the teams. Formative evaluation of the program and team effectiveness. Summative evaluation will document changes in project teacher's knowledge about CGI and beliefs about mathematics, and changes in their students' mathematical knowledge. A monograph on the program and suggestions for future CHI inservice will be produced.